Top-Down Control of Sensorimotor Performance by Prefrontal Cortex

This project will examine how a part of the brain, called the prefrontal cortex, is
involved in controlling behavior. The prefrontal cortex controls behavior much
like a business executive controls a company. "Top-down" control signals are
sent from the prefrontal cortex to lower brain areas, such as the motor cortex, to
control when animals respond to external stimuli. These signals might convey
information to the motor cortex about the expected timing of stimuli or might
simply control the timing of motor action by sending a "go" signal to the motor
cortex. To investigate this issue, recordings of neural activity will be made in
the prefrontal and motor cortices as animals learn to time stimuli in a behavioral
task. Anatomical methods will be used to determine if conversations between the
prefrontal and motor cortices occur through a special part of the motor cortex,
called the premotor cortex.

Intellectual merit: This project will be one of the first to examine interactions between
neurons in prefrontal and motor areas of the cerebral cortex by recording
in the two areas simultaneously. This project is also unique in that interactions
these areas are studied during learning. Finally, the project will be the first to resolve
if the rodent premotor cortex receives information from the prefrontal cortex
and thus might provide the first evidence that rodents have a cortical area that is
analogous to the premotor cortex of higher animals, including human beings.

Broader impact: All experimental protocols and procedures will be made available
to the neuroscience community and the general public. A novel Linux distribution
will be developed that contains programs needed to reproduce this research.
Undergraduate students will support these efforts. Students in Yale's
Summer Undergraduate Research Fellowship (SURF) program will take part in
the project and will be supervised by graduate students working in the PI's lab,
who will acquire training that goes beyond normal graduate student research activities.
In addition, the PI has initiated a neuroscience program for young children
through a local public library and is taking part in the Neuroscientist-Teacher
Partner Program of the Society for Neuroscience. All materials from the library
program and the PI's interactions with local teachers will be made available at
http://spikelab.jbpierce.org.